Collaborative Research: SaTC: TTP: Small: DeFake: Deploying a Tool for Robust Deepfake Detection

Deepfakes – videos that are generated or manipulated by artificial intelligence – pose a major threat for spreading disinformation, threatening blackmail, and new forms of phishing. They are already widely used in creating non-consensual pornography, and have begun to be used to undermine governments and elections. Even the threat of deepfakes has cast doubts on the authenticity of videos in the news. Journalists, who have a key role in verifying information, especially need help to deal with ever-improving deepfake technology. Recent results on detecting deepfakes are promising, with close to 100% accuracy in lab tests, but few systems are available for real-world use. It is critical to move beyond accuracy on curated datasets and address the needs of journalists who could benefit from these advances.

The objective of this transition-to-practice project is to develop the DeFake tool, a system that utilizes advanced machine learning to help journalists detect deepfakes in a way that is robust, intuitive, and provides results that are explainable to the general public. To meet this objective, the project team is engaged in four main tasks: (1) Making the tool robust to new types of deepfakes, and having it show users why a video is fake; (2) Protecting the tool from adversarial examples – small perturbations to a video that are specially crafted to fool detection systems; (3) Working with journalists to understand what they need from the tool, and building an online community to discuss deepfakes and their detection; and (4) Integrating advances from the other tasks into a stable, efficient, and useful tool, and actively disseminating this tool to journalists. The project team is also leveraging visually interesting deepfakes to develop engaging education and outreach efforts, such as a museum-style exhibit on deepfake detection meant for broad audiences of all ages.